Workshop: Smart Systems for Mitigation of Exogenous Threats Using Autonomic Response

Title: Workshop: Smart Systems for Mitigation of Exogenous Threats Using Autonomic Response
Proposal No. CMS-0624572
PI: Shoureshi, Rahmatallah A. , University of Denver
Abstract

A Joint AFOSR/ARO/NSF/ONR Workshop on Smart Systems for Mitigation of Exognenous Threats Using Autonomic Response will be held to develop a vision for Autonomic Systems for Threat Mitigation; to formulate blueprints for new research initiatives on "Smart Systems for Mitigation of Exogenous Threats Using Autonomic Response" on behalf of several US government agencies R&D programs; to leverage R&D investments, expertise, and resources of both US and Europe and to initiate collaborations, e.g. joint projects, that would benefit from complementary US/European expertise and facilities.